Provision by THEnet of NSFnet Regional Network Services

9321088 Bard This award assists the Texas Higher Education Regional Network (THEnet) in obtaining connectivity to other regional networks and to the rest of the Internet. The award, made under the guidelines published in NSF Program Solicitation 93-52, partially funds one fractional T-3 (10 million bits per second) connection. Anticipated duration of the award is four years.